Retrofit Methodologies for Existing Processes

Many design problems require that an existing process or system be redesigned to meet new requirements, respond to a changed environment, or respond to new a technology. An existing design imposes many constraints on redesign, and often the redesign must be achieved with limited resources. Examples of this class of design problems are retrofitting of chemical plants, redesign of manufacturing facilities, and expansion of electrical transmission and distribution networks. The goal of this research is to develop systematic methods for the redesign problem based on synthesis, simulation, and optimization. The principal investigator will initially study the redesign problem in the context of retrofitting chemical process plants. Specifically, he will develop methods for describing the existing process accurately, identifying the elements of the existing design that limit its improvement, generating a superstructure for describing the design with and without the limiting elements, identifying and modeling promising alternatives, and finally integrating and optimizing the alternatives within the existing design. This research focuses on an area of design that is neglected by researchers because redesign appears to be easier than the design of something completely new. However, most industrial design is redesign, and redesign is often more difficult because of the constraints imposed by the existing design.